Travel Support for Students and Underrepresented Stakeholders at Managing Drought and Water Scarcity in Vulnerable Environments -- Creating a Roadmap for Change in the U.S.

Nelson
0639433
Drought is a normal part of climate for virtually all regions of the United States. Recent droughts have
highlighted the increasing vulnerability of all regions to drought-induced water shortages. Climate change
and potential increases in the frequency, severity, and duration of drought episodes is further exacerbating
water management issues and conflicts among users. With mounting pressure on finite water supplies from
expanding and shifting population, urbanization, environmental degradation, and many other factors, it is
imperative for the United States to consider a paradigm shift to a risk-based approach to drought
management.
Managing Drought and Water Scarcity in Vulnerable Environments: Creating the Roadmap for Change in
the United States is the first national level meeting concerned with both the science and the policy of
drought management that involves stakeholders from many disciplines and perspectives and that is
convened for the purpose of creating a science- and policy-based briefing document. The goals of the
meeting are to create an integrated, interactive forum for understanding and improving our management of
drought and water scarcity in the United States, and to stimulate national debate through the publication
and wide distribution of The Roadmap for Change, a science- and policy-based briefing document.
The meeting, which is convened by the Geological Society of America and 22 meeting partners, is
designed to promote collaboration between the policy and science communities. A variety of formats will
encourage attendee participation: plenary and invited talks, panel discussions, interactive roundtables and
breakout group discussions, and poster presentations of case studies and innovative research and outreach
efforts. Invited speakers are among the best qualified in their respective disciplines, and represent a broad
perspective on drought management. The key findings and recommendations of this meeting will be
distributed in electronic format as The Roadmap for Change. This science- and policy-based briefing
document will identify needed scientific research for a more reliable and usable technical basis for public
policy decision-making, and identify successful, promising, and novel approaches to developing drought
science-based policies and programs.
It is important to have many perspectives represented, and many of the stakeholders will need financial
assistance to travel to and attend the meeting. The purpose of this funding request is to provide travel and
registration support to stakeholders who otherwise would not be able to attend, including underrepresented
groups such as Native American and Hispanic people, and students. We will seek applications from these
underrepresented groups through our web site and our network of contacts.
What is the intellectual merit of the proposed activity?
In the face of mounting pressure on finite water supplies, it is imperative for the United States to consider a
paradigm shift to a risk-based approach to drought management. This meeting is unique in that it seeks the
perspective of a range of stakeholders, including scientists, policy makers, and water users, to create a
unique collaborative document, The Roadmap for Change. This science- and policy-based briefing
document will identify the needed scientific research that can provide a more reliable and usable technical
basis for public policy decision-making, and will identify successful, promising, and novel approaches to
developing drought science-based policies and programs.
What are the broader impacts of the proposed activity?
This collaborative, interactive forum for understanding and improving our management of drought and
water scarcity will serve as an example of a model for inclusive and integrated science and policy
discussions. The Roadmap for Change will stimulate national debate on the challenges of drought and
water scarcity in the United States, and will be useful in efforts to effect policy changes.